NSF Young Investigator

9457376 Yennello A research program in nuclear physics will be initiated. This will center on the ultilization of beams of exotic nuclei to investigate nuclear reaction mechanisms. It will be possible to explore separately both isospin equilibration and the effects on nuclear properties of the Coulomb force. ***